Conference: Dialog 2004: DMS and the Mathematical Sciences Community; April 30 - May 1, 2004

The purpose of this grant is to conduct a two day conference to enable the Division of Mathematical Sciences to discuss its programs with representatives from academic departments around the country. The bulk of the funds in this grant will pay hotel and meal expenses for the participants.